Biosensor Electrode For Detection of HIV

This is a project to study adaptation of a biosensor electrode system capable of virus detection within a few hours to the detection of the Human Immunodeficiency Virus (HIV) in fluids of environmental significance. The concept is based upon successful application of an electrode to the detection of toxic chemicals by detection of changes in the respiratory activity of a biofilm of appropriate host cells mounted on the surface of a galvanic cell oxygen electrode. Objectives of this project include assessment of the feasibility of using the biofilm electrode for detection of the HIV in comparison with conventional tissue procedures and the "polymerase chain reaction," and to determine the potential of an electrode-based system for determining the survival characteristics of the HIV in environmental media. The investigator will be coordinating this research with that being conducted under NSF Grant No. 9018567 by Dr. Rasul Chaudhry at Oakland University. The proposal leading to this award was submitted to NSF under conditions outlined in NSF 89-85, Small Grants for Exploratory Research (SGER). While there is no present indication that the environmental media have a role in spreading the virus from infected to non-infected individuals, the potential does exist. The HIV has been shown to survive for significant periods of time in the environment. Results of this research may provide the basis for an analytical technique that could be used in conduct of research on the survival characteristics of the HIV when subjected to environmental stress as occurs in collection systems, treatment processes and systems for management of wastes infected with the HIV.